Research Experiences for Undergraduates in Physics at the University of Pittsburgh - Focus on Minorities

*** 9531628 Thompson The Research Experiences for Undergraduates (REU) site program at the University of Pittsburgh will be continued. This is a renewal, with minor modifications, of the program at the University of Pittsburgh for the past 4 years. Besides their research activities, the participants will also participate in academic studies in support of the research work, and will help to serve as mentors and role models for high school or less advanced college students. The program emphasizes African-American participation, both from within and outside the host institution, but all interested students are invited to apply. Students may participate as early as the summer before their sophomore year in college. The program is for summer participation (10 weeks) with participation in consecutive summers strongly encouraged. Some students may continue their research during the school year. ***